Synchronization Mechanisms for High-Performance Computing

The design, analysis, and implementation of highly concurrent synchronization mechanisms shall be investigated. In the traditional approach to synchronization, conflicting operations are implemented as mutually exclusive "critical sections". This has the effect of serializing operations, much to the detriment of performance. Such implementations also suffer from a lack of resiliency, as they are not immune to halting failures. Highly concurrent synchronization mechanisms minimize these shortcomings by either eliminating or reducing the need for critical sections. The research is divided into three principal components. The first component involves the development of highly concurrent synchronization mechanism and the development of tools for automatically incorporating such mechanisms in concurrent and distributed programs. The second component is concerned with the analysis of synchronization mechanisms by means of discrete-event simulation. The third and final component is concerned with implementation, specifically the synchronization mechanisms on a variety of real-world computing applications. The tools and algorithms developed will be of use to system designers and application programmers alike, providing a sound basis for the development of high-performance, fault-tolerant distributed computing applications.